Collaborative Research: CSR: Algorithm-Design-Technology Co-optimization for Next-Generation Self-evolving Implantable Devices

Implantable medical devices such as pacemakers, implantable cardioverter defibrillators, deep brain stimulators, cochlear implants, and sleep apnea implants help millions of people live healthier lives. However, these devices are typically programmed when implanted and can only be adjusted during medical follow-up visits, even though a patient’s condition may change from day to day. This project seeks to create a new generation of self-evolving implantable devices that can automatically adapt to each individual’s changing needs while operating within strict limits on size, power, and battery life. By continuously learning from physiological signals and adjusting their behavior safely and efficiently, these devices aim to provide more personalized care, improve health outcomes, extend device lifetime, and reduce the need for frequent manual tuning by healthcare providers.

The intellectual merit of this project lies in establishing a cross-layer co-design framework that jointly optimizes applications, learning algorithms, hardware architectures, and system level operation for self-evolving implantable devices. The research is organized into five integrated tasks across two phases. The first phase explores implantable device requirements, develops lightweight state-space models for physiological signal analysis, introduces uncertainty-aware safety mechanisms, and designs energy-efficient in-memory-computing architectures. The second phase advances adaptive model updating, uncertainty-triggered evolution, hardware reconfiguration, and algorithm-architecture co-evolution. The project investigates structured state-space models, adaptive quantization, Bayesian confidence estimation, processing-in-memory architectures, fault tolerance techniques, and reinforcement learning based optimization. Together, these efforts establish a unified framework for safe, personalized, and resource-efficient adaptation in highly constrained implantable systems.

The broader impacts include advances in personalized healthcare, workforce development, education, and community engagement. Self-evolving implantable devices have the potential to reduce health disparities by adapting to individuals whose physiological characteristics differ from those represented in conventional device designs. Improved autonomy may reduce clinical follow-up burdens and healthcare costs while enhancing patient quality-of-life. The project will create open-source educational materials, support undergraduate and graduate training, and provide research experiences related to artificial intelligence, embedded systems, and semiconductor technologies. Outreach activities will engage kindergarten through twelfth grade students and military veterans. Public datasets, benchmarking platforms, and design competitions will further expand participation and accelerate innovation in energy-efficient intelligent systems for healthcare and other resource-constrained applications.